Midwest Dynamical Systems Conference

Abstract
Meyer/Franks/McCord/McGehee

This award will partially support the Midwest Dynamical Systems Seminar. This conference series has met twice yearly for
over twenty-eight years. Over the course of these years, the meetings have been held from University of Montana to the
University of Texas, from Boston University to UC Berkeley, and at many place in between. The Seminar has had significant
impact on the community through the dissemination of recent results and the training of young investigators